U.S.-Australia Cooperative Research: Control of Photosynthesis in Mangroves under Natural Conditions

This award provides travel support for Dr. John Cheeseman and a graduate research assistant from the Department of Plant Biology at the University of Illinois to go to Australia in order to conduct cooperative research with Dr. Barry Clough of the Australian Institute of Marine Science (AIMS). The research will focus on the control of photosynthesis in mangroves under natural conditions. Mangrove forests of tropical coasts and estuaries are highly productive and essential to the maintenance of associated ecosystems. Mangroves, noted for their exceptional tolerance to high temperatures and light intensity as well as salinity, are also a notable exception to the rule that plants found in demanding environments would grow better in less demanding ones but are excluded by competition. The research team will travel to the Daintree River estuary in north Queensland where a combination of biochemical and biophysical approaches will be applied to the problem of short term control of photosynthesis in mangroves. Among the topics to be investigated is the apparent lack of photoinhibitory damage to leaves exposed to high light and high temperatures for prolonged periods with their stomates closed.